Young Scholars: Introduction to Engineering and Computers

The Tennessee Technological University will initiate a four-week, residential and commuter Young Scholars project in Engineering for 50 students entering grades 11,12. Fifty students, primarily from the Southern Appalachian region, will be selected to participate in this enrichment program which will consist of lectures in the Introduction to Engineering series, Engineering Design, Energy and Environmental Engineering and extensive research assignments. Participants will also develop a proficiency in Fortran 77 programming on the main University computer system and on microcomputers. They will also work in design teams to develop an engineering design of a device or system. Field trips will be taken to the Arnold Engineering Development Center (U.S. Air Force), to a TVA power plant, and to a local industry. A follow-up research project is planned.